Integers Conference 2005

The University of West Georgia (formerly known as the State University of West
Georgia) will be host to the Integers Conference 2005, a conference
in the areas of combinatorics and number theory. The conference will follow the
style of the successful "Integers Conference 2003," also held at the University
of West Georgia. The Conference will also honor Professor Ronald Graham, on the
occasion of his seventieth birthday. The 2005 conference will be somewhat
larger than that of 2003; in particular, it will cover four days rather than
three. The conference will attempt to serve as a catalyst for significant
collaborative projects among mathematicians and computer scientists
representing the areas of additive number theory, multiplicative number theory,
probabilistic number theory, combinatorics, combinatorial optimization, game
theory, and Ramsey theory. There will be four plenary
speakers: Doron Zeilberger, Joszef Solymosi, Daniel Goldston, and Neil Hindman.
There will also be approximately sixty 20-minute invited talks.

The conference will gather mathematicians, graduate students, undergraduate
students, and others interested in combinatorics
or number theory. It will include student research talks, and promote
interaction among research mathematicians representing the spectrum of
"career stages," from the talented undergraduate to the
internationally distinguished researcher. Various areas of expertise will be
represented from the general area of discrete mathematics. Leading experts will
present their latest work, and there will be much collaboration among
participants. The research areas have many applications, including
cryptography, genetics, neural networks, mathematical biology, radio frequency
assignment for mobile telecommunications, coding theory, sequences for
communications applications, and interconnection networks.